WTEC Research on International Research

This project provides for international technology assessments and related planning workshop support. WTEC and its predecessors have conducted over 55 such technology assessments since 1989. The objectives include seeking technologies to transfer to the U.S. evaluating the position of U.S. science and technology with respect to leading competitors, and seeking opportunities for international technology assessments over a three-year period of performance.

The project provides for nine or more additional international study tours and reporting of the results, plus three or more workshops in areas related to international technology assessments over a three-year period of performance.

Results will be disseminated at workshops including copies of visual aids distributed in hardcopy and posted on the Web, final reports from each study tour of academic quality in hardcopy, CD, and Web media plus at least one synthesis report cross-cutting findings. A monthly e-letter on assessment of international S&T will be published to report progress.